Decision-Making in the Context of Commitments to Team Activity

This project aims to provide the scientific basis for more complete theories of collaboration and to develop mechanisms for constructing collaboration-capable software agents. It is an inter-institutional collaborative research project of Harvard University and the University of Maryland. The research focuses on problems of constructing agents able to manage their plans and intentions in multi-agent contexts and to make decisions in the context of team activities.

The proposed research comprises three activities: empirical investigations of different policies governing commitment to group activities and their influence on individual and group behavior and outcomes; development of a formal theory that may be used to address abstractly questions of intention reconciliation and to identify stable strategies and effective policies for it; and construction of more sophisticated collaboration-capable software agents. Four strands of previous research support this effort: specification of a
formal model of collaboration, construction of prototype collaboration-capable systems, specification of models of negotiation, and development of a simulation framework for empirically investigating decision-making in the context of group activities.

The project contributes to fundamental research in collaboration, to the development of collaboration-capable software agents and collaborative human-computer interface systems, and to the training of undergraduate and graduate students.